The U.S. Government Response to Terrorism: Public Information and the Political Agenda

The research has as its goals to: 1) Comprehensively and systematically examine "public information" communicated by the U.S. State Department during three recent incidents of international terrorism; 2) Analyze the topics and political emphasis of such public information with respect to the existing administration's political agenda on pertinent international matters; 3) Describe the media's use or non-use of public information communicated by the U.S. State Department and the media's use of governmental sources during three incidents of international terrorism; 4) Analyze topical emphasis and slant of media reports on terrorist incidents with respect to State Department press material and the administration's political agenda on foreign affairs; 5) Examine the nature of news treatment which the leading mass media sources, in the U.S., gave to reports disseminated on each terrorist incident and; 6) develop a model to describe the process by which the U.S. government responds informationally to terrorism and the media's reaction in reporting such information. The proposed study entails a two-year program of research incorporating 1) documentary and archival research, 2) content analyses of print and broadcast media and 3) in-depth personal interviews. The preliminary activities will provide the essential investigatory and background research to design a more specific and manageable proposal for funding the primary study. The research activities for the planning grant period will involve three stages: 1) preliminary documentary and archival research; 2) preliminary personal interviews with governmental and media officials; and 3) A substudy of the primary research program that will entail content analyses of print and broadcast coverage of the Achille Lauro hijacking.